RAPID: Examining Community Corrections Agencies During COVID-19

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2).

The COVID-19 pandemic has created extreme challenges for community corrections agencies across the United States, a population at a high risk for infectious diseases due to a prevalence of social, economic, and behavioral risk factors. This RAPID project will measure and track agency-level responses to prevent, contain, and respond to the COVID-19 outbreak. Additionally, this project will examine how community corrections (the largest arm of the corrections system) respond to the COVID-19 pandemic and balance public health and public safety. Consequently, this study will investigate the circumstances under which community supervision agencies alter their policies and procedures during the COVID-19 pandemic, while examining the impact of the COVID-19 pandemic on the physical and mental health of community supervision officers.

Through surveys and interviews with community supervision administrators and officers, and based on a theory of organization change, this project will take a longitudinal approach to examine how community corrections agencies adapt during the COVID-19 pandemic. These methods will enable a study of the circumstances under which community supervision agencies alter their policies and procedures during the COVID-19 pandemic. This project will produce data and research results that will provide key information on the strategies agencies use during the COVID-19 pandemic. Findings will aid scholarship and agency decision making in response to the COVID-19 pandemic, while informing the development of plans to protect the health and well-being of correctional staff and clients in future infectious disease events.